Chemical Dynamics at Solid Surfaces

John Tully of the Chemistry Department of Yale University is funded by the Physical Chemistry Program of the Chemistry Division, by the Office of Multidisciplinary Activities (OMA) and by the Materials Theory program of the Division of Material Sciences to study chemical dynamics at solid surfaces. This project centers on the creation of advanced theoretical modeling tools and the application of these tools to study the dynamics of chemical processes at solid surfaces. Mixed quantum-classical methods will be used to study several systems of practical interest, such as adsorbates on silicon, hydrogen on metals and others. The theoretical tools developed in this research are likely to be of importance in the interpretation of experiments and mechanisms of surface catalysis, which is of great technological relevance.